Renormalization in Dynamical Systems and Statistical Mechanics

Professor Koch is investigating critical behavior in Hamiltonian
systems and models from statistical mechanics. Such behavior appears
to be attributed not to individual systems, but to manifolds of
systems. In the renormalization group approach to these phenomena,
one attempts to identify these manifolds as the invariant manifolds of
a transformation acting on the space of systems considered. Such a
"renormalization group transformation", acting on Hamiltonians, was
introduced in a previous project. It is expected to have a nontrivial
fixed point, whose stable manifold describes the critical breakup of
certain invariant tori. One of the main goals is to prove the
existence of such a fixed point. The proposed method involves the use
of a computer, to carry out the large number of estimates that will be
needed. Another goal is to use the known or anticipated properties of
the fixed point in order to describe critical invariant tori and
nearby periodic orbits. Extensions of renormalization group methods
to other (problems in) Hamiltonian systems will be investigated as
well. Some interesting formal connections with quantum field theory
and statistical mechanics also suggest new ways of approaching old
problems in these areas. One of the long term goals in this area is
to gain a better understanding of the critical behavior of Ising type
models. The approach here is to find and study suitable improvements
of the corresponding hierarchical model. Other interesting questions
concern the hierarchical model itself, and two fixed point problems
relevant to disordered media.

Much of this project is related to the question of stability in
classical Hamiltonian systems. Examples are coupled oscillators,
certain plasma beams, and models from celestial mechanics. In the
case of two degrees of freedom, quasiperiodic orbits that trace out
smooth invariant tori divide phase space into regions from which other
trajectories cannot escape, thus adding to the stability of the
system. The breakup of such tori, as system parameter are varied, can
cause the dynamics to become locally unstable or chaotic. Numerical
studies reveal that this happens in a highly universal way, with
certain measurable quantities taking exactly the same values, within a
large class of systems. The standard explanation of these findings is
based on the assumption that there exists a nontrivial Hamiltonian
system that is invariant under a suitable "renormalization group
transformation". The goal here is to prove that this assumption is
correct. Part of the proof will be carried out by a computer. This
work should yield valuable insight into the mechanism behind the
observed phenomena, and at the same time, advance the state of the art
in computer-assisted proofs -- a technique that will undoubtedly play
an important role in the future of mathematical research. Similar
universality phenomena are associated with phase transitions in
condensed matter physics, and models from several other areas in
mathematics and physics. A more general form of universality -- the
fact that macroscopic descriptions are possible without the exact
knowledge of microscopic details -- is in fact at the heart of
physics and other sciences. The projects under investigation are part
of a long term effort to understand such phenomena, and to describe
them mathematically. A correct mathematical description can also be
expected to lead to significant improvements in numerical algorithms.